Workshop on Logic Control for Manufacturing Systems

Dawn Tilbury, University of Michigan
0075426
Workshop on Logic Control for Manufacturing Systems

Discrete part manufacturing systems typically consist of numerous machines
working together in a coordinated and sequential fashion. Programmable
logic controllers are widely used to implement the control algorithms for
these machines. Systems with hundreds or thousands of inputs and outputs,
many of them simple on/off switches, are not uncommon. The logic
controller must handle not only the normal operation sequence and
synchronization of the machines, but also the operator interface and error
handling and recovery routines.

The purpose of this workshop is to bring together participants from
industry and academia to create an understanding of the gaps which exist
between the theory of discrete-event systems and control and their
implementation in industrial manufacturing systems. The focus will be on
coordination and sequencing problems, complexity management, error handling
and recovery, automatic generation of executable code, and control
verification.